Small Grant for Exploratory Research - An Investigation on Reconfigurable Optical Memory

9312625 Murdocca A method for dealing with the decoder limit through the use of reconfigurable optical interconnects is proposed here. A significant aspect of the proposed effort is that the decoding mechanism supports fast access to arbitrarily sized sections of memory. A number of previously reported optical addressing schemes only support access to entire pages, or involve more complex page composing mechanisms than the simple approach proposed here. ***